Nuclear Migration and Early Zygotic Gene Action in Drosophila

The specific goals of this proposal are: 1) To achieve, using newly developed immunocytochemical techniques, a detailed picture of both nuclear and cytoskeletal organizations present in Drosophila embryos during the cleavage stages of development. 2) To critically analyze the exact details of how the cytoskeletal elements tubulin and actin reorganize as the cleavage nuclei enter the periphery. These results will be augmented with real- time observations of living embryos viewed with Nomarski DIC optics and documented with video technology. These results, in conjunction with the previous work will provide the descriptive foundations for which many known Drosophila mutations affecting early development can be analyzed. 3) To examine in greater detail the effects mutations in the engrailed and even-skipped genes have on early development. Mutations in these two genes are lethal to the embryo, and disrupt segmentation in a reproducible and spatially specific manner. This proposal is designed to further our understanding of the relationship between these genes and cytoskeletal elements in the embryo that provide structure and movement, with special emphasis on the actin and tubulin-based cytoskeletons. In the long term, an understanding of how these and other genes act to build the body plan of Drosophila should tell us how similar genes work in higher eukaryotes including humans. %%% Fertilization of an egg by the sperm initiates a developmental program that results in a fully viable adult animal. This developmental program is completely specified by the contents of the fertilized egg, and the challenge facing developmental biologists is to decipher exactly how the information that is present in the egg is first stored, and then subsequently utilized and processed as the embryo develops. Dr. Karr's work will provide key information about the very earliest events following fertilization.